Symposium T: Glasses and Glass Formers - Current Issues to be held at the 1996 Materials Research Society Fall Meeting in Boston, MA, December 2-6, 1996

9619352 Pachavis Technical abstract: The Symposium T at the Fall96 MRS meeting will provide a forum for the exchange of ideas on the highly multidisciplinary topic of"Glasses and Glass Formers". The topics to be discussed are 1) the liquid-glass transition, 2)the relationship between the structure and the properties of glass-forming liquids and 3)the relationship between the properties of supercooled liquids and those of the corresponding low temperature glasses. NSF support will provide financial assistance to postdoctoral research associates, junior faculty members and their students. %%% Non-technical abstract: The Symposium T at the Fall96 MRS meeting will provide a forum for the exchange of ideas on the highly multidisiciplinary topic of"Glasses and Glass Formers". The Symposium will bring together the major scientific contributors in the highly multidisciplinary field of research to discuss the ubiquitous properties of supercooled liquids and their relationship to the properties of the corresponding glasses. NSF support will provide financial assistance to postdoctoral research associates, junior faculty members and their students. ***